Tenth International Conference on Spectral Line Shapes; Austin, Texas; June 1990 (Physics)

The 10th International Conference on Spectral Line Shapes will be held at the University of Texas at Austin on June 24- 29, 1990. The conference emphasizes those physical processes associated with the formation of spectral line profiles as observed in the absorption, emission and scattering of light by plasmas and neutral gases.